Computer-Mediated Social Science Skill Development

9451787 Pentony The project augments and modernizes computer and multi-media technology for use in laboratories that serve the international relations, political science, and urban studies student majors. The aim of the project is to increase student competence in data discovery, accessing global communication networks, data analysis, problem solving, and the presentation of their findings.